Department of Interior Bureau of Reclamation Support of the National Center for Atmospheric Research Activities

The Department of Interior is providing support for support under this Cooperative Support Agreement.